Debugging of Real-Time Distributed Systems

Debugging of real-time distributed software systems is difficult because of timing constraints imposed on them and because of their non-deterministic behavior. Conventional static analysis methods are not adequate to deal with the violation of timing constraints which are inherent in real-time distributed software systems. This research develops a dynamic analysis method which uses recorded run-time information to debug these kinds of timing errors. Based on this approach, a non-interference monitoring architecture will be developed to collect the process-level and the function-level program execution data of a target real-time distributed system. Different-leveled logical views can be reconstructed from this collected run-time information. The dynamic analysis method will then be developed to analyze the timing behavior of real-time distributed software systems.